Quantum Statistics of Nonclassical, Pulsed Light Fields

Professor Raymer studies the quantum statistical properties of light generated by "stimulated splitting" of photons in an intense laser pulse as it travels through a nonlinear optical crystal. This light splitting technique is optical parametric amplification (OPA) and produces strongly correlated photon pairs. The ability to measure photon-number distribution with high quantum efficiency makes possible a detailed characterization of nonclassical (inherently quantum mechanical) effects.